Mechanism of B Activation of the Maize Anthocyanin Pathway

Our goal is to understand the mechanisms by which the expression of the maize anthocyanin biosynthetic enzymes is coordinately induced by the regulatory protein B. The B gene product is required for the steady state accumulation of mRNA from several genes encoding anthocyanin biosynthetic enzymes (structural genes), and we have recently demonstrated that the B gene plays a major role in stimulating the transcription of the structural genes. Transient cotransformation studies using plasmids carrying structural gene promoter sequences fused to luciferase, and plasmids which produce B protein, demonstrate B mediates an approximately 100 fold induction in luciferase activity. The deduced amino acid sequence of the B protein (obtained from the cDNA sequence) revealed a myc homologous region found in several DNA binding proteins and a negatively charged region characteristic of transcriptional activators. Both in vitro and in vivo assays will be used to: examine the in vivo modification of the B protein and its subcellular location and tissue distribution; dissect the regions of the B protein necessary for transcriptional control of the structural genes; determine the functions of these regions (transcriptional activation, DNA binding, protein/protein interactions, etc.); assess whether the B protein interacts directly with regulatory regions found in the structural genes; identify other proteins interacting with B; and investigate if B influences anthocyanin biosynthesis at levels in addition to transcription of the structural genes. The maize anthocyanin biosynthetic pathway represents one of a small number of pathways in higher plants for which regulatory proteins and their targets are known. Thus, studying the mechanisms utilized by B should reveal important information regarding regulated gene expression in higher plants.